Introduction of Fourier Transform NMR Spectrometry into the Chemistry Curriculum

The incorporation of a 300 MHz Fourier transform nuclear magnetic resonance spectrometry will demonstrate to students the unique power of FT techniques in spectroscopic applications. The theory and practice of NMR will be introduced in organic chemistry and advanced FT NMR topics and experiments in the instrumental analysis course. FT NMR will also be included in the laboratory programs of all of the advanced courses. New laboratory experiments will illustrate multinuclear resonance, homonuclear and heteronuclear correlation spectroscopy, relaxation phenomena, and variable temperature studies. Advanced students will use the instrument in undergraduate research, which will greatly strengthen the program. The grantee will match the NSF award from non-federal sources.